ITWF: Scholars of the Future: An Implementation Model for Increasing Diversity in Information Technology

Abstract
CNS-0420485
PI: Juan Gilbert
Institution: Auburn University

Title: ITWF: Scholars of the Future: An Implementation Model for Increasing Diversity in Information Technology

This ITWF project provides significant research and mentoring to upper level undergraduate computer science students, with a focus on under-represented participants. The goal is for these students to pursue graduate degrees in information technology related fields and then pursue academic careers. This Scholars of the Future model is to be implemented at Auburn University all four years and at Virginia Polytechnic Institute in the last two years.

The intellectual merit of this project lies in strong research basis and the expertise of the collaborative partners participating in the project. The project features an extremely comprehensive assessment plan that should provide research-based insights that are of great value. The student research covers a broad spectrum of the information technology discipline, with leadership and mentorship from recognized scholars in the various fields.

The broader impacts of the project lie with the potential to produce a substantial number of computer science graduate students and potential faculty members, with many from underrepresented groups. In addition, the model is easily replicated at other institutions and could be sustained as part of the research programs at the institutions.